CISE Next Generation Software: Software Systems: Compiling for Speculative Distributed Microarchitectures

EIA-9974976
Purdue University
Eigenmann, Rudolf

Compiling for Speculative Distributed Microarchitectures

This project introduces a novel compiler paradigm called conservative-assumption-free compilation, which breaks the barrier of a conservative compile-time assumption, one of the most severe limitations of current generation of compilers. The new paradigm is enabled by emerging speculative, distributed microarchitechtures. In the proposed project the PIs will implement a full compiler system for such architectures. The effort will complement the already-onging Purdue Multiplex architecture project being investigated by the same PIs.

Purdue Multiplex combines trends of increasing on-chip integration with aggressive speculative instruction execution. Its distributed, single-chip microarchitecture integrates conventional multiprocessor thread-level parallelism with speculative execution of today's aggressive superscalar processors. The compiler generates threads, which are not necessarily independent, from a sequential program and the hardware guarantees correctness in case of inter-thread control/data dependencies via speculation and rollback mechanisms. By providing support for thread-level speculation, the hardware relieves the compiler of the burden of guaranteeing inter-thread independence, enabling our conservative-assumption-free compilation paradigm. Our compiler will speculatively parallelize the unexplored domain of non-numeric applications via new analyses and novel transformations. Our compiler will tightly integrate techniques to exploit both instruction-level and thread-level parallelism.